The Light-Cone QCD Workshop at Ecol de Physique des Houches, Les Houches, France - February 24 - March 7, 1997

A workshop on `Light-Cone Quantum Chromodynamics` will be held Feb. 24 - March 7, 1997 in Les Houches, France. Quantum Chromodynamics (QCD) is the theory which describes the strong force which binds atomic nuclei together and is responsible for the behavior of many elementary particles. The light-cone method is a promising approach to dealing with the complexities of QCD, so that the predictions of this theory may be extracted. The workshop will bring together leading practitioners of the light-cone approach for an important exchange of ideas.